Transforming Undergraduate Biochemistry Education: A Community Approach Linking Learning, Assessment and Curricular Innovation

This project focuses on nationwide improvement of student learning in undergraduate biochemistry courses through design, implementation and evaluation of classroom activities and materials which target threshold concepts, by a group of over 50 faculty experts from diverse backgrounds. Threshold concepts are concepts that, when mastered, represent a transformed and integrative understanding of a discipline, without which the learner cannot progress. The project goals follow a cycle that uses assessment data and community input in a feedback loop to improve student learning. Materials will be disseminated through a project web site and at regional and national conferences.